RAPID: Pandemic Learning Loss in U.S. High Schools: A National Examination of Student Experiences

As a result of the COVID-19 pandemic, schools across much of the U.S. have been closed since mid-March of 2020 and many students have been attempting to continue their education away from schools. Student experiences across the country are likely to be highly variable depending on a variety of factors at the individual, home, school, district, and state levels. This project will use two, nationally representative, existing databases of high school students to study their experiences in STEM education during the COVID-19 pandemic. The study intends to ascertain whether students are taking STEM courses in high school, the nature of the changes made to the courses, and their plans for the fall. The researchers will identify the electronic learning platforms in use, and other modifications made to STEM experiences in formal and informal settings. The study is particularly interested in finding patterns of inequities for students in various demographic groups underserved in STEM and who may be most likely to be affected by a hiatus in formal education.

This study will collect data using the AmeriSpeak Teen Panel of approximately 2,000 students aged 13 to 17 and the Infinite Campus Student Information System with a sample of approximately 2.5 million high school students. The data sets allow for relevant comparisons of student experiences prior to and during the COVID-19 pandemic and offer unique perspectives with nationally representative samples of U.S. high school students. New data collection will focus on formal and informal STEM learning opportunities, engagement, STEM course taking, the nature and frequency of instruction, interactions with teachers, interest in STEM, and career aspirations. Weighted data will be analyzed using descriptive statistics and within and between district analysis will be conducted to assess group differences. Estimates of between group pandemic learning loss will be provided with attention to demographic factors.

This RAPID award is made by the DRK-12 program in the Division of Research on Learning. The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through the research and development of new innovations and approaches. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for the projects.